ITR/SMALL/Scientific Frontiers: Task-Specific Data Reduction and Mining in Spatial-Temporal Domains

Advances in earth sciences have spurred a large growth in spatial-
temporal databases with multidimensional attributes. Unfortunately, the
improvement in data collection techniques has not been accompanied
with the efficient methods that analyze large databases, which currently
limits their use. To address the need for facilitating large-scale
knowledge discovery at a wide range of spatial-temporal datasets the
objective of the proposed project is development of novel techniques
for (1) task-specific data reduction in spatial-temporal databases; and
(2) efficient knowledge discovery on reduced spatial-temporal data.
The first task builds on the observation that the amount of collected data
is not necessarily correlated with specific knowledge discovery tasks,
and that real-life datasets are often highly redundant. The second task
addresses a number of open questions for more efficient mining of
reduced spatial-temporal datasets including exploring trade-offs
between model complexity and data reduction for efficient learning,
exploiting residual correlations for prediction, and task-specific
partitioning of nonstationary spatial-temporal data. The proposed
techniques will be evaluated on multi-source datasets with various
complexities. This project will result in guidelines for effective
dissemination of spatial-temporal data sets to wider research audience
and algorithmic tools for more successful knowledge discovery from such
data.